Workshop for Outreach to Future NEES Proposers

ABSTRACT
PROPOSAL : 0410298 DATE : 07/14/2004

Proposal Title: Workshop for Outreach to Future NEES Proposers
Institution: University of Illinois at Urbana-Champaign
Abstract Date: 12/22/2003
Project Summary
At the request of the program officer at NSF, in order to facilitate the solicitation
of high-quality proposals from institutions which are considering submitting proposals to
the NEES program, the University of Illinois conducted a workshop on November 6,
2003.
Four invited speakers came to the University of Illinois NCSA in order to present
material using NCSA's collaborative links. This is to provide reimbursement of travel
costs for those four presenters.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0410298 PI Name:Beldica, Cristina